Acquisition of Hypermedial Technology to Enhance the Biology Curriculum

The objective of this project is to enhance learning of concepts and problem-solving skills by engaging students with hypermedial tools throughout the curriculum. A microcomputer- based laboratory consisting of student workstations networked with a server are incorporated into the introductory core curriculum courses (Diversity, Ecology/Evolutionary Biology, Genetics, and Molecular/Cellular/Developmental Biology), a research methods course, upper division elective courses, and non-major's courses to enhance the teaching of major biological concepts and scientific problem-solving skills. Interactive object-oriented software (utilizing a Macintosh interface) serve as the platform to address learning of concepts through a) computer databases, b) simulations, c) computer-based data collection exercises, and d) data analysis exercises of laboratory or field-collected data. Problem-solving skills are addressed with hypermedial tools that provide a) database support, b) graphical support, c) statistical support, and d) productivity support.